Oceanographic Technical Services

0072990
Walden
This award to Woods Hole Oceanographic Institution in Massachusetts provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using three oceanographic research vessels, R/Vs Atlantis, Knorr and Oceanus, operated by the institution as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic studies from these three vessels throughout the world oceans, beginning in 2000.
***